CAREER: Investigating Fundamental Problems for Underwater Multimedia Communication with Application to Ocean Exploration

Wireless acoustic communication is the typical physical-layer technology underwater
because of the high medium absorption of radio frequencies and of the scattering
problem affecting optical waves. As of today, however, acoustic communication
solutions support only delay-tolerant low-bandwidth monitoring applications.
Conversely, this research enables near-real-time acquisition and processing of
heterogeneous data from mobile and static ocean exploration platforms. Reaching this
goal will improve the efficiency of monitoring key dynamic oceanographic phenomena
such as phytoplankton growth and rate of photosynthesis, salinity and temperature
gradient, and concentration of pollutants. Toward this end, this research studies
underwater inter-vehicle communication solutions aimed at enhancing the capabilities of
the NSF's Ocean Observatories Initiative (OOI) cyberinfrastructure.
The primary intellectual merit of this project offers the distinction between two forms of
position uncertainty. Typically, uncertainty in the position of a mobile vehicle as
estimated in relation to itself (which the PI refers to as internal uncertainty) is the focus
of distributed underwater robotics and networking. By contrast, the PI introduces the
new notion of external uncertainty, in which uncertainty in the position of a mobile
vehicle is estimated by others. Specifically, this project focuses on modeling external
uncertainty, on designing reliable underwater communication solutions that exploit the
external-uncertainty notion, and on demonstrating the effectiveness of integrating
computation and communication resources on marine science and technology through
emulations and field experiments.
One of the broader impacts of this work is the generation of computer-literate
undergraduate and graduate researchers with a comprehensive knowledge in
underwater sensing, communication, and coordination. The PI will create new teaching
modules on distributed sensing, provide opportunities for exchange programs, leverage
existing minority student outreach networks at Rutgers, and incorporate student
exchange programs as well as team-teaching approaches.